Studies of Nuclear Structure and Nuclear Processes at Intermediate Energies

9314783 Cameron The Indiana University Cyclotron Facility is a national user facility for research in nuclear science. This grant provides funds for the operation of IUCF, for support of its user program, for the research of the Indiana University staff, and for the training of graduate students in nuclear science, accelerator physics, and related fields. The facilities at IUCF include a 200 MeV cyclotron and a 500 MeV booster synchrotron with electron beam cooling. Experiments are possible with the extracted cyclotron beam in several experimental areas, and using ultra-thin internal targets in the Cooler ring. Polarized beams are available in all areas, and polarized gas targets can be used in the Cooler ring. A new high-intensity polarized ion source (HIPIOS) will provide a twenty-fold increase in beam currents. A wide variety of detectors can be used, including magnetic spectrometers, neutron time-of-flight systems, recoil detector, and large scintillator and wire chamber arrays. The K600 spectrometer with focal plane polarimeter and Beam Swinger neutron detection system will be used in a broad range of spin transfer reactions aimed at studying effective nucleon-nucleon interactions. Studies will be carried out in threshold meson production, few-body reactions, nucleon-nucleon scattering, nucleon-nucleus reactions, all directed towards improved understanding of the hadronic substructure of nuclei, the underlying role of meson degrees of freedom, and tests of fundamental symmetries. Graduate students and undergraduates are integrated into all aspects of IUCF research, including instrumentation development, and their training is a prominent aspect of IUCF activities.